The 5th North American Spring School on Medical Robotics

This award is to support travel by up to 50 student participants to attend the 2019 Spring School on Medical Robotics. All of the supported students are attending US institutions.

This grant is a conference support grant for the expenses of up to 50 selected U.S. trainees (PhD students and post-doctoral fellows of various disciplinary backgrounds pertaining to medical/surgical robotics, image-guided interventions, surgical simulation and training, biomechatronics, rehabilitation robotics, and medical devices) attending the 5th North American School on Medical Robotics - "2019 Spring School on Medical Robotics". The School will be held at the Georgia Institute of Technology in Atlanta, Georgia, from April 1-2, 2019 to introduce and educate trainees on the ground- breaking research and opportunities in surgical robotics, image-guided medical interventions, surgical simulation and training, rehabilitation robotics, etc. Organized in part by the Georgia Institute of Technology, the school focuses on providing a forum to exchange scientific findings, discuss recent research progress, identify areas requiring greater emphasis, set research goals for collaborations, recognize outstanding achievement in the field, and promote the study of medical robotics to young scientists.